Nonlinear Dynamic Forecasting for Signal Processing Applications

9704911 Short This project will attempt to develop signal processing techniques based on nonlinear dynamic (NLD) forecasting. Traditional signal processing approaches have generally relied upon the assumption that systems are either periodic/quasi-periodic or random. The NLD forecasting approach attempts to bridge the gap between these approaches by assuming that there may be a deterministic component which is responsible for the observed complex behavior. Prior work on a test case has shown that it is possible to use NLD forecasting to predict seismic background noise sufficiently well that it is possible to reduce the noise by over an order of magnitude, making it possible to see hidden teleseismic events. In other applications, NLD forecasting has been used to unmask secure chaotic communication schemes by predicting the dynamics of the chaotic carrier with sufficient accuracy that the hidden messages may be extracted. The proposed research will expand the use of multi-step forecasting methods so that predictions can be made for longer times, and so that signal extraction may be improved. Resumming techniques will also be studied, where a series of short-term predictions will be used to rebuild the hidden signals. Seismic data from various sites will be examined to explore the limits of predictability, and an attempt will be made to develop real-time processing techniques which will aid in monitoring of nuclear treaties. The link between spectral signal processing methods and NLD processing will be studied so that the tools can be used in a complementary and integrated manner. Curvature-based methods of NLD processing will be developed for time series where it is difficult to get a nice phase space reconstruction. NLD forecasting will be used to create statistical ensembles which can then be considered from a statistical processing perspective. Success in these research areas will represent significant progress in the developme nt of NLD signal processing as an important new technology. This project will attempt to develop a new signal processing technology based on nonlinear dynamic (NLD) forecasting. Traditional signal processing approaches have generally relied upon the assumption that systems are either periodic or random. NLD signal processing recognizes that many systems which appear to be random may be produced by processes which are inherently predictable, at least in the short-term. In fact, it is the ability to make accurate short-term predictions which distinguishes nonlinear dynamic systems (also known as chaotic systems) from typical random systems. These NLD prediction techniques have already been used on a test case of seismic background noise provided by the Air Force Technical Applications Center (AFTAC), where it was shown that the background noise could be predicted so well that after the predicted background was removed, one could clearly see the presence of hidden signals which were essentially equivalent to distant nuclear test detonations. In another application, NLD prediction techniques have been used to extract hidden messages from chaotic communication systems, where the predictions about the behavior of the chaotic carrier signal were so accurate that when they were removed, the hidden message signal could be observed. The proposed research will expand these NLD forecasting methods to improve the extraction of signals from noisy environments. The seismic problem will be examined using various data sources to determine the limits of predictability, and a parallel processing implementation will be used to attempt to develop a real-time processing system which may be useful for monitoring of nuclear treaties. Further research will examine the connection between NLD techniques and traditional signal processing techniques. Success in these research areas will represent significant progress in the development of NLD signal processing as an important new technology.